EAGER: Cybermanufacturing: Smartphone Actuated Optical Lab-on-a-Chip Systems for Biomanufacturing and Analysis

This EAGER project develops computational tools to enable lab-on-a-chip devices that can be optically actuated using smartphones and tablets. Low-cost, portable lab-on-a-chip systems can impact a wide variety of applications including biomolecule production, point-of-care medical diagnostics, newborn screening, and biochemical sensing.

The developed algorithms and software will coordinate the motions of droplets of chemicals on light-actuated digital microfluidic (LADM) chips by using moving patterns of projected light to optically actuate the droplets.